RIMI: Fine Scale Copepod Distribution in a Georges Bank Larval Fish Patch

9450474 The proposed research would continue the development of research emphasis in fisheries oceanography. The scientific focus of the proposed work is the fine scale vertical and temporal distribution of copepod life stages in patches of cod and haddock larvae sampled intensively during Georges Bank "process" cruises. Approximately 40 fine mesh (.064mm) one fourth m MOCNESS samples selected from four spring cruises conducted in 1981-1983 on the southern part of the Georges Bank will be processed.